Statistical Methods for Local and Complete Social Networks, with Applications to Multirelational and Social Support Networks

9310184 Wasserman The investigator will continue the development of statistical methodology for social networks. The focus of this project is to integrate and merge the statistical and algebraic analyses of multirelational networks, and to develop statistical models for complete and local networks. Data will be analyzed from egocentered or local networks. This type of data is rarely analyzed extensively because of a lack of appropriate methods and models. The investigator will work to construct statistical relational algebras to model complex relational structures using logistic regressions. %%% The research will provide a statistically sound approach to estimating, from data, the magnitude and relative importance of dyad-dependent effects in real networks. The tools developed will be useful for understanding wide-ranging problems in fields (i.e., epidemiology, social work, social and community psychology, anthropology and sociology) where either behavior or evolutionary dynamics depend on the pattern of contact between individual actors. ***